SOFTWARE: Job Scheduling for Data Centers with Multi-level Storage Systems

Job Scheduling for Data Centers with Multi-Level Storage Systems

Abstract

In many fields of science, engineering, and medicine, data is being collected and generated at an increasing rate, due to high-resolution measurements made possible by advanced sensor technologies and large scale simulations enabled by inexpensive, high-performance computing through commodity PC clusters. In order to support the data management and processing requirements of data driven science, research institutions and supercomputing centers will not only host, manage, and provide access to computing resources but also will deploy high-end, Grid-enabled data centers.
The objective of this project is to develop the scheduling technologies to provide efficient access to shared resources on large scale storage systems with multi-level storage hierarchies. We plan to design, implement and evaluate scheduling approaches for job schedulers that will control the access to and sharing of resources and that will support high throughput and interactive responses for many simultaneous data analysis and computing jobs on large storage systems.